Broad-Band, Wide Dynamic Range Fiber-Optic Accelerometer System for Ground Motion Surveys

Improved reliable accelerometers suitable for wide deployment in seismic arrays are needed for earthquake prediction studies. In response to this need Optical Technologies, Inc. (OPTECH) is proposing a fiber-optic accelerometer system that provides the desired performance improvements of broad-band, wide dynamic range, and low power consumption, as well as other significant benefits and features: o Broad-band response (< 0.1 Hz to > 100 Hz) o Wide dynamic range (on the order of 140 to 160 dB) o Low power consumption o Robust construction (no moving parts) o Capability to operate in any orientation o Low maintenance cost o High reliability (no moving parts) o High radiation tolerance (suitable for nuclear plant deployment) o Digital out (in Phase II)